U.S.-Ecuador Planning Visit: Geodynamics, Active Tectonics, and Geological Hazards in the Northern Andes, Ecuador

0000406
Zeitler

This Americas Program award will support a planning visit to Ecuador by Drs. Peter Zeitler, David J. Anastasio, Anne S. Meltzer, and Frank J. Pazzaglia, all from Lehigh University, Bethlehem, Pa., to meet with Dr. Minard Hall and other colleagues from the Instituto Geofisico Nacional, associated with the Escuela Politecnica Nacional of Quito.

The purpose of the visit is to carry out join research planning with scientists of the Instituto, to investigate field logistics, and examining key field sites, with the goal of developing two joint research projects, as well as a joint training program for advanced students of active tectonics and geologic hazards. The projects include a study of the geodynamic mass balance in the northern Andes between volcanic eruptions and erosion; study of neotectonic deformation and catastrophic sedimentation in the Interandean Valley; and a program that will involve research experience in these areas for advanced students.

***